Research in High Energy Physics: Theory and Phenomenology of Supersymmetry

Research in theoretical elementary particle physics will include studies
of supersymmetry and other new theories of fundamental particle
interactions. Supersymmetry is a promising idea which predicts the
existence of many new heavy subatomic particles. The properties of these
particles, including their masses and the rates at which they decay into
other particles, will be studied under a variety of different theoretical
assumptions.

The resulting predictions are important because they will affect both
the planning and the analysis of many present and future experiments that
search for new particles. These studies are of central importance for
understanding the behavior of particle physics involving interactions at
very high energies. They will also impact on our understanding of the
physics of the very early universe, when the particles under consideration
would have been plentiful.